Reactivity of B-X Bonds with Transition Metal Complexes: Chemistry of Metal Boryl Complexes and Their Relevance to Functionalization of Organic Substrates

The Inorganic, Bioinorganic, and Organometallic Chemistry program will provide a grant to Dr. Milton R. Smith of Michigan State University to explore the reactivity of boron containing reagents with transition metal complexes. He will study the reactivity of metal-olefin complexes with borane reagents emphasizing selective transformations relevant to hydroboration chemistry. He will develop synthetic routes to, and fundamental reaction chemistry of, single and double bonds between boron and early transition metals. He will also explore the oxidative and metathetical reactivity of boron-boron bonds with transition metal complexes. He proposes experiments to induce catalytic conversion of olefins to vinyl boranes, to define the mechanisms of these reactions, to prepare compounds with metal-boron double bonds, and to investigate the involvement of B-B bonds in redox and metathetical reactions. The principal relevance of this work is tied to metal-catalyzed hydroboration of alkenes in organic chemistry. The addition of borane reagents to unsaturated organic molecules is an extremely versatile reaction, particularly because the conversion of borane groups to various functional groups generally proceeds with retention of the stereochemistry at the carbon. This project pushes the frontier of hydroboration chemistry. It is expected to uncover relevant mechanism information which will aid in the discovery of new catalysts with new and different properties. The discovery of a boron metal double bond would be a major achievement in this area and could have far reaching implications.